Hornblende 40Ar/39Ar Age Spectrum Studies: Vacuum-Heating and Hydrothermal Stability

The principal investigator will study the behavior of hornblende in both vacuum and hydrothermal environments. Transmission electron microscopy, scanning electron microscopy, electron microprobe analyses, and 40Ar/39Ar analyses all will be utilized in the investigation. The goal of the study is to better understand diffusion kinetics in hornblende, and to apply the results to geochronologic determinations.